SBIR Phase II: Clinical-Scale Suspension Bioreactor for Primary Hematopoietic Culture

This Small Business Innovation Research Phase II project describes the
development of a disposable, highly efficient suspension bioreactor for
primary hematopoietic (blood cell-forming) cell culture. The unique
challenges (heterogeneous nature, donor variability, and shear-sensitivity)
of these cultures render traditional flask or suspension cultures unable to
economically and consistently produce large quantities of cells. In Phase I,
the feasibility and characteristics of a disposable suspension bioreactor was
demonstrated. In Phase II, a scaled-up prototype of a large, agitated
disposable bioreactor designed for clinical use (stem cell transplantation)
will be constructed, characterized, and tested for reliability and durability.
Gas and mass transfer correlations established in Phase I will be verified
and extended. The use of medium optical density as a surrogate measure
for cell density will be investigated.

The final product will be a system that combines the simple, disposable nature
of flask culture with the control and monitoring capabilities of a suspension
bioreactor. The resulting system will enable the cost-effective production of
large numbers of primary hematopoietic cells and will improve the effectiveness
and decrease the cost of medical procedures in the fields of transplantation,
immunotherapy, and gene therapy.